RIA: Resource Management in Parallel Database Systems

Multiprocessor database machines, with their promise of high availability, scalability and performance, are increasingly the systems of choice for large applications. Efficient resource utilization is crucial for maximizing both a response time of individual queries and the overall system throughout. Resource utilization issues include how to allocate memory to workload components, how many and which queries to run in parallel, how to share the system resources to improve the system performance. We restrict our attention to parallel shared-nothing database systems. In our previous research, batch scheduling of the query workload was studied. We demonstrated that sharing low-level query operators can provide significant savings. In this project, we shall perform research into the following areas: 1) Memory Management for Mixed Workloads. These workloads mix simple queries and short ad-hoc read transactions. We shall study an incremental memory allocation method for processing a mixed workload. 2) Data Placement. For a system consisting of several hundred nodes, full declustering can lead to a performance degradation. Alternative placement methods will be examined. The proposed research will involve both the development of algorithms for problems in these areas and their experimental analysis using a precise simulation of a parallel shared-nothing system.